Eighth North American Meeting of New Researchers in Statistics and Probability

The Eighth North American Meeting of New Researchers in Statistics and
Probability is a meeting of recent Ph.D. recipients in Statistics and
Probability. Anyone who has received a Ph.D. since 2000 or expects to
receive a Ph.D. by 2006 is eligible to attend. The purpose of the
conference is to promote the professional development of new
researchers primarily by introducing them to each other's research in an
informal setting. All participants are expected to give a short,
expository talk or contribute a poster on their research. Topics will
range across a variety of areas from theory and methods to
applications. This will provide a unique opportunity for junior
researchers to exchange ideas and initiate contacts amongst themselves
as well as provide them an opportunity to interact with the invited
senior participants. The meeting is to be held prior to the 2005 Joint
Statistical Meetings in Minneapolis, MN.

The New Researchers conference series is explicitly aimed at training
the future leaders in Statistics and Probability. At present,
researchers develop contacts with others in their field either through
their own institutions or at meetings of professional societies. It is
often the case that, at their own institutions, junior researchers have
limited contact with senior colleagues. Also, meetings of professional
societies are rather large and junior researchers often find them
overwhelming. In helping to create networks of new researchers, the
conference will lay the groundwork for future collaboration and the
informal exchange of ideas and knowledge. It also assists in general
professional development. Knowing people outside of one's research
specialty area is critical for professional growth, assisting with
making contacts at other universities and industries, and helping with
professional service activities. In particular, traditionally
underrepresented groups are strongly encouraged to attend.